Modes of Lithospheric Extensional Consumption and Magmatism: Testing for End-member Cases at the Great Basin-Colorado Plateau Transition with a Magnetotelluric Resistivity Transect

EAR-0230027
Wannamaker

EAR02-30027: Modes of lithospheric extensional consumption and magmatism: testing
for end-member cases at the Great Basin-Colorado Plateau transition, Utah, with a
magnetotelluric resistivity transect
P.I.: Philip E. Wannamaker (University of Utah, Energy & Geoscience Institute, 423
Wakara Way, Suite 300, Salt Lake City, UT 84108, [email])
Abstract
End-member possibilities for stable lithospheric extension will be tested according to
their influence on physical properties of the deep crust and upper mantle across the Great
Basin-Colorado Plateau transition zone, south-central Utah. The main geophysical
property to be investigated is electrical conductivity, together with its implications for
thermal and rheological state, which will be imaged using the magnetotelluric (MT)
technique. New MT surveying primarily across the transition zone (TZ) per se will join
existing data into an E-W transect nearly 400 km in length, with a depth range of
sensitivity from 100's of m to 250-400 km approximately. Data will be acquired using
wideband and long-period recorders of the University of Utah and University of
Washington, which reside in the NSF-supported EMSOC instrument facility. Existing
geophysical indicators show a strong N-S strike orientation at upper crustal to
lithospheric scales and should allow accurate cross sections of model conductivity using
mainly current 2-D regularized inversion platforms. Substantially reduced electrical
resistivity values at lower crustal and upper mantle depths inferred from MT field
data most likely reflect melts and exsolved ionic fluids. Previous surveying indicates
that the onset of low resistivity in the deep crust occurs for T > ~500-550 o C in high-grade
metaigneous host rocks. Depth variation in low resistivity thus will approximate
an isotherm which should evolve gradually from the GB to the CP in the case of
uniform TZ warming, or show an upwelling under the little-extended TZ in the case
of non-uniform, enhanced extension at depth. Exsolved fluids weaken the lithosphere
greatly through diffusion creep, so resistivity will provide a clear view of at least
relative rheological contrasts. Conductivity, heat flow and constraints on composition
and timing of extension, will be used in time-dependent, 2-D thermal modeling for an
improved projection of the thermal field into the upper mantle.